A Study of Oxygen Abundances in Giant Stars in Globular Clusters

Kraft will observe and analyze spectra of about a dozen giant stars in each of six globular clusters. The goal is a better determination of the oxygen abundance in these stars. The observations have become possible with the advent of the Hamilton spectrograph at the 3-meter telescope of Lick Observatory. Most of the award supports a named graduate student. Globular star clusters were formed at the time when our Galaxy was formed. Their observation can inform us of the elements present at that time and the formation of the elements since then by stars in our Galaxy. Oxygen is one of the elements made in stars and an element that is most important both for the evolution of aging stars and for chemistry everywhere. For the first time, new observational facilities permit a reliable measurement of the oxygen abundance in giant stars within globular star clusters. Kraft and a graduate student will obtain such measurements and evaluate the oxygen abundances for stars in six globular star clusters.